CAREER: Dataflow Analysis for Modern Software Systems

Proposal Number: 0546040

Proposal Title: CAREER: Dataflow Analysis for Modern Software Systems

PI: Atanas Rountev, Ohio State University

Interprocedural dataflow analysis plays a central role in tools for
software maintenance, testing, verification, and optimization. Modern
software has characteristics that cannot be handled by traditional
approaches: it typically uses multiple distributed components, and it
often employs dynamic mechanisms that are hard to analyze statically.
Existing analyses fail in the presence of such features, making it
hard to provide sophisticated tool support for real-world software
systems. In turn, this reduces programmer productivity and leads to
lower software quality. This project focuses on three challenges posed
by modern software: reusable components, such as standard libraries;
distributed software; and run-time adaptation through dynamic class
loading and reflection. This effort is a significant step towards
building powerful software tools that are truly usable and useful in
the software industry.

The theoretical foundations of dataflow analysis are generalized to
achieve precision and scalability in the presence of reusable
components. Widely used analyses (e.g., points-to analysis, MOD/REF
analysis, constant propagation, and object naming) are adapted to
distributed component-based systems. The analyses are systematically
generalized to handle dynamic language features. Dissemination is
achieved through open-source analysis implementations and two program
understanding tools. The broader impacts of the project include (1)
research infrastructure which provides scalable off-the-shelf
implementations of several fundamental static analyses, (2) tools that
supply high-quality support for program understanding, which will
improve productivity and software quality, and (3) integration of the
research with education, which will increase the students' proficiency
in current methods and tools for software development, and will
accelerate their career progress.